NSF Young Investigator

9358518 Ramirez The focus of the research is to develop new knowledge and methods in the area of engineering design for the purposes of effective teaching and real-world application that will facilitate the development of engineering judgment and design vision for new engineers as well as established engineers facing new technologies. Results from the fields of educational psychology and cognitive science will be integrated and developed into a cohesive framework for teaching/learning which will be motivationally-based, student centered, and vectored towards structured experiential learning for the development of engineering judgment. The role of spatial and functional visualization in scientific creativity will be investigated. New knowledge structures and methods will be developed to cope with the intrinsic characteristics of engineering design as well as for the accomplishment of the goal of innovation. ***